Prediction and Control of Particle Transport Rates in Vertical Tubes Using a Spout-Fluid Bed Feeder

To effectively design a pneumatic transport system one must know precisely the entrance condition to the delivery system. Although these systems have been in common use for decades an accurate characterization of their inlet condition still evades researchers. What is needed is a standard feeder whose feed conditions can be uniquely determined. One such system that offers promise is the spout-fluid bed with draft tube. In this design the feeder to the vertical tube (termed a draft tube in spouted bed literature is essentially a shallow spout-fluid bed which is analyzed theoretically to determine a) the entrance conditions to the draft tube and b) the particle mass flowrate to the tube.